Laser Processing and Tribological Properties of Superhard Materials

9414434 Narayan Pulsed laser and ion-assisted pulsed laser deposition techniques will be developed to deposit coatings of hydrogen-free diamondlike carbon, cubic boron nitride, and carbon nitride on 52100 steel, silicon, and intermetallic compounds. The films will be fully characterized by various surface analysis techniques and by TEM, and their hardness, adhesion, and tribological properties will be determined ***